Creativity in Engineering Award: Use of Polarized Light to Represent Bipolar Values in Neural Networks

The research involves systems employing three innovations using polarized light to represent bipolar values, using liquid crystal devices as neuron outputs and connection matrix, and using a custom integrated detector and comparator. Emphasis is on new applications for neural networks, better algorithms for current use, and new methods of implementing neural networks.